Advanced Signal Analysis Methods For Detection of Gravitational Waves with LIGO

The inspiral and merger of black holes and neutron
stars are the most promising sources of gravitational
wave signals for the Laser Interferometer Gravitational
Wave Observatory (LIGO), expected to become operational
in 2002. Inspiral signals take the form of chirps,
i.e. signals with monotonically increasing frequency.
Methods will be developed for the detection of chirped
signals. Specifically, a new approach, the Fast
Chirp Transform (FCT), will be implemented. The FCT
provides a simple and elegant formalism for detecting
a broad class of variable frequency signals, and is
is a generalization of the Fast Fourier Transform (FFT)
to non-linear phase evolution such as that exhibited by
chirped signals.

Development of Fast Chirp Transform techniques will
allow fast on-the-fly realization of matched filter
detection techniques without the need for generation
of large families of binary inspiral signal templates.
FCT techniques will also allow enhanced tests for
detector confidence by measuring the false event
rate for chirp signals. Finally, FCT techniques will
be applicable to the detection of binary black hole
inspiral by allowing searches over a wider range of
black hole spins.